Combinatorial Algorithms

This project investigates a variety of problems in the design and analysis of combinatorial algorithms, including the behavior of local search algorithms for combinatorial optimization problems, approximation algorithms for NP-complete problems, space-efficient data structures, persistent data structures, applications of the Bellman-Ford shortest paths algorithm, and algorithms and lower bounds for parameterized optimization problems. The main thrusts of this research are finding new ways to store and search discrete combinatorial data efficiently, and showing that known combinatorial search algorithms cannot perform well in the worst case. The theme that unifies the problems under consideration is that all have a graph-theoretic aspect and an algorithmic aspect.